Learning What's Labor: The Changing Nature of Work, Leisure, and the Good Life in the Central Canadian Arctic

Graburn/Stern
OPP-9903500
Abstract

This dissertation research examines the changing understanding of work in a Canadian Inuit community and the manner in which the changes are reflected in the processes of integration into the culture, values, and economy of the post-industrial state. The project considers the ways in which externally imposed notions of work discipline have been adapted to local needs in the Canadian Arctic. The ways that contemporary Inuit deal with the process of "making a living" is very different than it was 75, 30, or even 15 years ago, and therefore understandings of and attitudes toward work are also different. Data on the contemporary situation will be drawn from ethnographic fieldwork in the Copper Inuit community of Holman. Longitudinal changes with be shown through comparisons of historic documents and ethnohistorical sources, previous ethnographic fieldwork in the same community, and through the use of government manpower and social welfare statistics.